Increasing Minority Graduates with a Bachelor's Degree in Computer Science and Mathematics

This project seeks to increase the number of students, especially minority students, graduating with degrees in Computer Science and Mathematics from New Mexico Highlands University. The program provides 10 scholarships the first year, and 20 scholarships the second year to junior and senior students. Student-based tutoring and mentoring services are offered from graduate students, upper division students, and the local student chapter of the ACM. Other support structures include faculty workshops, and presentations from alumni about career opportunities in computer science and mathematics.